Gordon Research Conference on Nuclear Physics; Tilton, New Hampshire; July 17-21, 1989

This award supports the Gordon Research Conference on Nuclear Physics, held at the Tilton School, Tilton, NH, July 17-21, 1989. This conference is the continuation of the series of Gordon Research Conferences on Nuclear Physics. The unique character of this conference is widely recognized both in the United States and abroad. It has been organized to cover a number of the important subfields in nuclear physics and makes possible for spirited discussion and communications among scientists in these areas. The program this year selected some of the most interesting developments, both theoretical and experimental, in nuclear structure, electromagnetic interactions, heavy-ion collisions, subnuclear effects and hadron structure and symmetries in nuclei. There were also talks on new detector initiatives for nuclear physics and the NSAC Long Range Plan for Nuclear Physics. Invited speakers, session chairmen and attendees have been selected to ensure a mix of senior researchers, post-docs and advanced graduate students among the participants. A major part of the funds will be used to provide support for young scientists attending the conference.